Collaborative Research: New Directions in Atomic PNC

New theoretical methods are developed, within the framework of relativistic many-body
theory, to treat parity nonconservation (PNC) in heavy atoms. The goal of this research is to
improve the accuracy of PNC amplitudes in atoms and ions of experimental interest. Reducing
the error in PNC calculations leads to more accurate experimental weak charges QW, quantities
that depend on atomic theory and in turn provide valuable tests of the standard electroweak
model. Precise calculations of the nuclear spin-dependent PNC amplitudes provide data needed
to extract accurate anapole moments from PNC experiments. These in turn shed light on
inconsistencies between constraints on weak nucleon-nucleon coupling constants obtained from
the experimental anapole moment of cesium and those obtained from other nuclear PNC
measurements.
To improve calculations of PNC matrix elements, an indirect method that eliminates truncation
errors is developed to perform sums over intermediate states. This method leads to a
large set of inhomogeneous linear equations, similar to the singles-doubles (SD) equations developed earlier by this group.